Quantitative Literacy: Leadership Training for Master Teachers and Mainstream Educators

The Quantitative Literacy Project, sponsored by the American Statistical Association will promote the teaching of statistics in the K-12 mathematics curriculum by providing detailed curriculum frameworks; by training 240 middle school and high school teachers to implement these frameworks using carefully planned strategies which are supported at the local level; and by using materials and methods collected and tested by the participants. Advice will be obtained from a group of mathematics supervisors, district mathematics coordinators and experienced teachers of statistics. This group will meet at a Supervisors Conference for three days in order to define the scope and sequence of topics and address the related needs of materials development for teacher training. With the framework in place a five-day model teaching program will be developed in one contiguous geographic region in which a support network can be developed. This network, supported by the state supervisor will include 20 "master" teachers of middle school mathematics, 20 "master" teachers of high-school mathematics, local statisticians from universities and industries, and mathematics education professors. Each teacher will be selected from a school which will assure that a unit on statistics can be taught in the fall term, and will allow the master teacher to attend six follow-up two hour discussion groups every two weeks. In the second year of the project five additional institutes of 40 teachers will be hosted by resource statisticians. At the end of the third year, when the follow-up and evaluation are completed, the project should produce: A list of resource persons, including teachers of statistics, statisticians at universities and in industry, and mathematics educators; materials to conduct in-service training in statistics; a manual on how to teach basic topics in statistics; computer software for all basic topics; references for topics not covered by Quantitative Literacy materials; curriculum materials that cover all basic topics; a detailed scope and sequence document for teaching statistics, grade K through 12.